Assistance for International Experts to Participate in and Partial Support for Planning of MI'92, the Manufacturing International Conference in 1992

Financial assistance is to be provided for travel expenses for approximately 15 experts to allow them to participate in panels, workshops and paper sessions of The Manufacturing International Conference in 1992. International experts in manufacturing, banking, accounting, and management will be invited. The Heads of foreign institutions, banking institutions, management and industrial engineering school, and governmental agencies will also be approached. These experts will provide an opportunity for benchmarking the status of research, technological application, education and human resources, managerial and accounting practices, and procurement of machines and building factories (capital investment).